The Effect of Particle Cementation on the Mechanical Properties of Granular Materials: A Fundamental Study

ABSTRACT
CMS-9978662
The Effect of Particle Cementation on the Mechanical Properties of Granular
Materials: A Fundamental Study
Rauch, Alan F. and Jon E. Olson
The University of Texas at Austin

The objective of the proposed study is to develop methodology for predicting
strength and failure of weakly cemented sand and gravel from small-strain
stiffness as measured with the velocity of stress waves. The project will be
especially concerned with weakly cemented sand and gravel, and phenomena such
as soil liquefaction in earthquakes and sand production in petroleum wells,
where correlation of wave velocities to strength would be useful. The objective
will be approached through the development of an improved, fundamental
understanding of how particle cementation can be determined from wave
velocities and static moduli, and how this characterization of cement can be
related to engineering behavior such as aggregate strength, liquefaction
potential, and sand production. A concurrent numerical and experimental
investigation is planned. Experiments on cylindrical test specimens will be
conducted in a triaxial test apparatus, while the numerical work will involve
Discrete Element Method (DEM) simulations. Experimental data permit immediate
calibration and verification of analytic results, while numerical simulations
can be helpful in identifying underlying mechanisms responsible for observed
behavior and in designing useful laboratory tests. DEM simulations will be used
to compute bulk material strength and elastic wave velocities as a function of
particle size distributions, intergranular cement and material porosity.
Behavior observed from these simulations will be used to devise appropriate
experimental tests and test conditions that are most likely to produce
meaningful data. Samples for experimental testing will include naturally
occurring granular material of varying degrees of cementation and strength, as
well as artificially created samples.